Femtosecond Optical Nonlinear Transients in Semiconductors and Their Device Application

This effort deals with the use of non-linear materials to switch and control light. The measurements seek to answer the question as to how rapidly such devices can be expected to respond to quick changes in the optical beam and to provide data by which appropriate materials can be chose. A variety of semiconductor materials and phenomena in these materials which can be used for this manipulation of light beams will be examined.